RaMP: Advancing Indigenous perspectives to address climate vulnerability in the Southwest: research training for and by diverse communities

Southwestern landscapes are experiencing intensifying climate stress, which threatens to damage ecosystems beyond their capacity to provide culturally significant ecosystem services. To build the scientific workforce needed to address this challenge, this project delivers a post-baccalaureate research training program which will increase the participation of Indigenous and Latinx students in STEM fields. It provides research experiences in the biological sciences and comprehensive student mentorship. A diverse network of mentors and collaborators, including Indigenous leaders and elders; university and tribal college faculty and graduate students; and partners from non-profit, private, and public sectors will develop an annual research plan. The annual plan will focus on three to five research projects each year to be carried out by a cohort of ten post-baccalaureate fellows. This program will have several important broader impacts for society. 1. Thirty post-baccalaureates will be trained in the conduct of research and allied skills to advance their careers in climate change biology. 2. The training received by mentees and mentors will increase cross-cultural literacy by building the capacity of scientists, conservation leaders, and land managers to better integrate Indigenous knowledge and perspectives. 3. The collaborative research will advance Tribal and agency climate mitigation planning. 4. The program will launch young scientists into careers founded on biological expertise. 5. Research findings will be shared via outreach materials, websites, published in the peer review literature and presented at conferences. 6. Research findings will be applicable to climate change mitigation and aimed at protecting natural resources critical to the culture of underserved communities in the Southwest.

Research projects will focus on integrating ecological, evolutionary, and cultural perspectives to predict and mitigate catastrophic ecosystem transitions. Specifically, the research will address these questions: 1. How does past evolution of tolerance in key foundation species predict limits to their species distributions? 2. How do species interactions constrain the boundaries of species and ecosystems? 3. How does the stability of ecosystem functions depend on community-level responses to climate change? Working from physiological to landscape scales across woodland, rangeland, riparian, and agricultural systems will allow fellows to develop a wide range of skills. Skill development will include field and laboratory experimentation, experimental plantings, biodiversity assessment, population modeling, next generation sequencing, chemical and isotopic analyses, geographic information systems, and remote sensing. Integrated training and development activities for both fellows and mentors will include (1) ecological, evolutionary, and cultural components of climate adaptation, (2) interdisciplinary and quantitative approaches for testing hypotheses from population to landscape ecology, (3) responsible and safe conduct of research, and (4) cross-cultural communication, collaboration, and leadership skills. Recruitment of fellows will be through Tribal Colleges and Hispanic-serving institutions in the southwestern US and use local and national networks serving populations historically underrepresented in biology and natural resources careers. Support and training will be tailored to the background and goals of individual fellows to ensure they are competitive for the next step in their career whether that is entering the environmental biology workforce or continuing to graduate school.

Co-funding for this award is being provided by Navigating the New Arctic (NNA) program one of NSF's 10 Big Ideas. NNA supports projects that address convergence scientific challenges in the rapidly changing Arctic, empower new research partnerships, diversify the next generation of Arctic researchers, enhance efforts in formal and informal education, and integrate the co-production of knowledge where appropriate. This award aligns with those goals.